CT-M: Meta-Environments for Experiments on Diverse Topics in Network Security

Proposal Number: 0831427
PI: Paul Barford
Institution: University of Wisconsin - Madison
Title: CT-M: Meta-Environments for Experiments on Diverse Topics in Network
Security

Abstract
In order to address the continued escalation in the diversity, sophistication and quantity of
malicious activity in the Internet, new methods for systematic testing and evaluation of
next generation security systems and techniques are required. The objective of this
research is to investigate and develop meta-environments for Emulab-based testbeds. A
meta-environment is a set of testbed configurations, tools and processes developed for a
specific security domain that enables experiments to be conducted in a simplified,
realistic and consistent fashion. The first component of this research program is focused
on investigating tools such as traffic generators that can be used across all metaenvironments.
Next, five specific meta-environments will be investigated and developed
for the following areas: 1) network intrusion detection, 2) firewalls, 3) honeynets, 4)
denial of service defense, and 5) security perimeter design. Finally, mechanisms for
federation between the Wisconsin Advanced Internet Lab, DETER and other Emulabbased
testbeds that will enable large-scale experiments and transparent access to
resources will be investigated. The broader impacts of this project are that it will
simplify and accelerate the use of testbeds for security research, and enable consistent
comparisons between new security systems and tools. The expected results of this work
include tools, configurations, and documentation for the five meta-environments and
testbed federation capability. The project also includes education and outreach activities
that will develop network security lab exercise materials. These web-based materials will
be openly available to the community, and will emphasize a hands-on approach intended
to provide students with practical, relevant experiences.